Manufacturing Forum

This grant supports a manufacturing forum which will be undertaken by the National Academy of Engineering and the National Academy of Sciences. It provides policy- makers from government, industry, labor, and universities an opportunity to meet and discuss issues that influence the overall competitiveness of U.S. industries engaged in manufacturing. While there is wide recognition that efforts are needed to improve the environment in which manufacturing and industry operate, no clear concensus of agenda specific actions has emerged. This grant provides a forum where such actions can be considered and, if necessary, recommended. Broad concerns with these issues in general has been represented by government, industry, and academe during a meeting that was convened by the Manufacturing Studies Board of the National Research Council in February 1986. It was recommended that a manufacturers forum should be created to bring together leaders of activities related to manufacturing, to exchange views and review alternative actions. This request is fully consistent with the Directorate for Engineering's objective of "stimulating the application of engineering knowledge to the solution of significant problems of national interest."